Studies in Operator Algebras

The proposer will continue his study of the longstanding Kadison--Ringrose
conjecture on the cohomology of von Neumann algebras. He will use and
refine some recently developed techniques needed to show the complete
boundedness of certain multilinear operators. Investigations of the cohomology
groups have led naturally to the recently introduced concept of norming
subalgebras, and this topic will be pursued since it applies directly to
both cohomology and the bounded projection problem. In a different, but
related, direction, maximal abelian subalgebras (masas) and general
subalgebras of von Neumann algebras will be studied. In joint work, the
proposer has introduced the concept of strongly singular masas, and has
shown that many finite factors arising from hyperbolic groups (a class
which includes the free groups) have such masas. The results so far
obtained indicate that the theory can now expand to study general
subalgebras. This relates directly to the structure of factors (the
building blocks of operator algebras), and the overall goal of these
proposed areas of research is to increase our understanding in this area.
Building on previously accomplished work, problems in the theory of
topological entropy for automorphisms will be studied. Automorphisms are
the most basic objects associated to operator algebras, and they can
reveal different facets of the same underlying object. The entropy is a
numerical constant that distinguishes different automorphisms.
Previous joint work of the proposer showed that the current theory, based
on completely positive maps, can be better reformulated in terms of
complete contractions. This puts the theory into a much more flexible
situation where more general and powerful tools can be brought to bear on the
problems of the field, notably relating to crossed products by
automorphism groups.

The modern study of operator algebras has evolved from two main sources.
Matrices, which are generalizations of numbers, were introduced to solve
equations and now find applications from computer graphics to search
engines for the web. In formulating quantum mechanics mathematically, von
Neumann found that he needed infinite dimensional versions of matrices
called linear operators which were best studied in operator algebras.
Moreover the time evolution of quantum mechanical systems came to be
expressed in terms of the crossed product by groups of automorphisms, and
here topological entropy plays an important role. The project is mainly
concerned with the theoretical underpinnings of operator algebras, but
the proposed work in these areas could impact some of these more concrete
areas, since the finite factors are those operator algebras which most
closely model matrices.